The Use of Stable Isotopes to Investigate Hydrocarbon- Contaminated Soils and Groundwaters

9631735 Poulson This proposal was submitted in response to the Environmental Geochemistry and Biogeochemistry solicitation, NSF 92-6. It is being jointly funded by the Earth Sciences Division, the Molecular and Cellular Sciences Division, and the EPSCoR office. The proposed research will involve the use of stable isotopes as a potential technique to investigate the sources and processes affecting behavior of hazardous organic compounds in the subsurface. The proposed interdisciplinary research will combine geochemical and microbiological components in an experimental investigation of the carbon isotope systematics of toluene, one of the five more frequently detected groundwater contaminants at hazardous sites. the research will emphasize fractionation accompanying processes such as adsorption, volatilization, dissolution of a free liquid phase, and microbial degradation. Stable isotope compositions will be monitored using gas chromatography - combustion - isotope ratio mass spectrometry. The research may ultimately contribute to approaches used to identify and quantify natural processes involving these organic compounds and also to engineer remediation efforts.